1/5th-Scale Model MUST-SIM Education and Training Laboratory

PI: B.F. Spencer, Jr., UIUC

This proposal requests $97,000 to develop a 1/5th-scale model laboratory to educate and train
users of the NEES MUST-SIM facility. This laboratory is an essential component of a two-step
procedure to qualify experiments before being scheduled for the MUST-SIM facility. This qualification
procedure can form a model for the other NEES equipment sites. If the equipment for the
scale model facility is purchased now, while the manufacturer is still geared up for production of
the various components for the MUST-SIM facility, nearly a 50% cost savings can be achieved, as
compared to creating the facility at a later date.